Three Dimensional Reconstruction of Images of Interior Objects Using X-rays and Large Area Detectors

This project will advance three-dimensional X-ray image reconstruction by developing cone-beam reconstruction algorithms via Fourier techniques that are more efficient and accurate than existing methods. Such algorithms are crucial in Computed Tomography, a method applied in particular to nondestructive evaluation of industrial objects. Computed Tomography provides views of the interior of objects by integrating data acquired by area detectors. The integration of such data is a complex mathematical problem which this project will advance. A successful high speed, high quality, and low cost reconstructor is expected out of this project.